RUI: Cosmic Microwave Background Data Analysis

AST-0098048
Bunn, E.F.

This research will improve methods of analysis for large data sets in Cosmic Microwave Background (CMB) studies, including refinements of algorithms for analyzing large maps and removing foreground contamination. The methods will be tested using simulations, and then applied to datasets generated by BEAST, an existing balloon-borne telescope for measuring CMB anisotropies, and eventually all-sky satellite observations. Extraction of statistics beyond the simple power spectrum, such as non-gaussianity and isotropy of the fluctuations, is the main goal of the research.
***